POWRE: Wireless Transport of Low-Bitrate Multiresolution Video

EIA-9870418
Bystrom, Maja E.
Drexel University

POWRE/CISE: Wireless Transport of Low-Bitrate Multiresolution Video

This research is the basis for developing a strong research and education program in the area of wireless transmission. The emphasis is on the innovative research in designing and evaluating new coding techniques particularly suited for the low-bitrate wireless arena. The project will provide laboratory facilities specifically to enable the researchers to perform real-time analysis of coded video transmission and analyze the tradeoffs between developed coding schemes. The coding schemes will be developed within a multiresolution framework and combined source-channel coding analysis. The results of this effort will be adaptive source and channel coding schemes optimized for low-bitrate digital video transmission in selected mobile environments.